Editorial Services for the Antarctic Journal of the United States

Between 16 July 1993 and 30 June 1994, the contractor will provide the following services for the quarterly and review issues of the Antarctic Journal of United States: {SYMBOL 183 \f "Symbol" \s 10 \h} editorial services: copy editing; rewriting; photo research and substantive editing when directed; the preparation of quarterly climate summaries; and the acquisition of four quarterly awards list from the NSF mainframe {SYMBOL 183 \f "Symbol" \s 10 \h} production services: proofreading and wordprocessing for five issues of the journal; copy mark-up and preparation of art for reproduction for the review issue; and desktop publishing work (includes typesetting and layout); and graphic design work (as necessary) for the quarterly issues of the journal {SYMBOL 183 \f "Symbol" \s 10 \h} administrative services: communication with NSF and authors via letter, electronic mail, or telephone; maintenance of a database to track manuscripts, art work, photographs, and author correspondence; preparation of solicitation letters for the review issue. These services were solicited via competitive procurement through Commerce Business Daily. The contract is a cost-plus-fee contract for 1 year with four 1-year options to extend until June 1998. Details of all work required under this contract are outlined in RFP OPP 93-106.